NMR in Undergraduate Instrumentation in Chemistry and Physics

The use of a recently acquired 60 MHz muclear magnetic resonance (NMR) spectrometer with lock/decoupler and variable temperature accessories is modernizing and significantly broadening the training of undergraduate students in chemistry and other sciences at Linfield College. This is being accomplished through the implementation of six instructional objectives: (1) training students in the use of NMR to rapidly generate detailed information about the physical structure of small molecules; (2) helping students verify the identity of organic compounds synthesized in the laboratory; (3) providing a way to measure subtle temperature-dependent physical changes in molecules; (4) illustrating physical principles related to nuclear spin; (5) introducing students to a means of rapidly determining the relative quantities of known compounds in mixtures; (6) encouraging undergraduates to become involved in research projects.